CONACyT: Topological Methods in Distributed and Concurrent Computation

This NSF-CONACyT Collaborative Renewal Award continues to apply techniques from the abstract mathematical area of simplicial algebraic topology (developed under CCR-9505949) to the problem of coordinating concurrent processes in a distributed or parallel computing system. Coordination problems arise at all scales of modern distributed and concurrent systems, way from synchronizing access to shared data objects in tightly-coupled multiprocessors, to allocating data paths in ATM networks. Coordination is difficult because modern parallel and distributed systems are inherently asynchronous (that is, processes may be delayed without warning for a variety of reasons, including interrupts, pre-emption, cache misses, communication delays, or failures). These delays can vary enormously in scale: (a) a cache miss might delay a processor for fewer than ten instructions; (b) a page fault for a few million instructions; and (c) operating system pre-emption for hundreds of millions of instructions. Coordination protocols that do not take such delays into account run the risk that if one processor is unexpectedly delayed, then the remaining processes may be unable to make progress. Such problems become increasingly severe as systems scale. In the past few years, a number of researchers have developed a range of new techniques, based on classical algebraic topology, for analyzing distributed and concurrent protocols and data structures. These techniques have been applied successfully, under the US-Mexico collaborative effort supported by CCR-9505949, to a range of computational problems. This renewal collaborative project extends these algebraic topological techniques to a range of more difficult problems, not just for distributed and parallel computing, but for any problem area that requires reasoning about uncertainty and partial information.***